RUI: Nuclear-Reaction Studies at Low and Intermediate Energies (Physics)

Studies of nuclear reactions at low and intermediate energies will be carried out in three distinct projects. First, measurements of analyzing powers in the radiative capture of polarized deuterons on deuterium will be performed to study the energy dependence of the odd-parity multipoles in the transition. These measurements will be performed at the University of Wisconsin-Madison and/or the Indiana University Cyclotron Facility. Secondly, a recently developed microscopic DWBA model, used to consistently analyze elastic and inelastic nucleon scattering, will be enhanced and possibly used as a basis for formulating an empirical effective nucleon-nucleon interaction which may be used to more accurately describe the scattering data. Finally, measurements of charge-exchange reactions will be performed at Los Alamos National Laboratory, extending the body of knowledge about such reactions to energies in the 50-250 MeV region and providing further data for use in the study of reaction dynamics.